US-Ghana Planning Visit: The Effects of Residential and School Crowding on Children's Learning

0121408
Maxwell

This is a planning visit grant for Professor Lorraine E. Maxwell, with the Department of Design and Environmental Analysis at Cornell University, to travel to Ghana to participate in a Faculty Development Seminar sponsored by the Council on Educational Exchange, which will be held at the University of Ghana in Legon. She will discuss the results of her NSF-supported project (SES-9616686) on the long-term effects of residential and school crowding on children's cognitive and social development with participating Ghanaian faculty members for the purpose of identifying potential collaborators for a cross-cultural research project on the topic.